SGER: SMART Integrated System for Water Health Monitoring and Decontamination: Addressing Aftermath of Hurricane Katrina and Alike Situations

The objective of this proposal is design and development of a micro-nano
Integrated SMART water health monitoring and decontamination system-on-a-package
(SOP). This objective will be met through the following specific goals of
this proposal: (a) to understand and address the challenges in measurement of
flood water parameters, in particular Coliforms, continuously and rapidly
throughout large volumes and over large time spans, using micro-sensor system
integrated with wireless communication system; (b) another key objective is to
embed specially engineered decontaminating surface activated nanoparticles
reservoir coupled in a feedback-loop with the micro-sensor to release the
particles once a high Coliform count is detected in the contaminated flood
regions in the instances such as after Hurricane Katrina.

Intellectual merit of the project will have far reaching implications in the areas of
(1) fundamental science required to enable the development of integrated
sensing systems that would be capable of rapid response monitoring of the flood
water affected area, (2) design considerations of such fusion of nano-micro
devices and materials and their survivability in the harsh environment, and (3)
testing of nanoparticles with sample contaminant, representative of what was
observed in the Katrina aftermath.

Broader Impact of the project would facilitate the fundamental understanding
and optimization of the science and technology of continuous water quality
monitoring as well as active environment specific remediation in case of
catastrophic events.